Collaborative Research: Creation of an Online Archive of Airborne Storm Penetration

This research will develop a digital online archive of airborne in situ data collected over nearly two decades by the South Dakota School of Mines and Technology's T-28 Storm Penetration Aircraft. The aircraft has been operated as a national research facility under a Cooperative Agreement with the National Science Foundation.

These data are unique as the T-28 had been the only aircraft capable of penetrating active convective storms to collect in situ data. The research will archive the data from over 15 research campaigns and make them available, in digital format, to the broad user community via the Joint Office of Science Support at the University Corporation for Atmospheric Research.

The archived data will be available to current researchers as well as future researchers and because the aircraft has reached its active service life it was removed from service. These data may be the only data of this type for many years, if ever again.